Sonified Interactive Simulations for Accessible Middle School STEM

Students with disabilities often have fewer opportunities for experiential learning, an important component of quality STEM education. Computer based simulations in science can provide valuable opportunities for these students to experience and manipulate natural phenomena related to critical STEM ideas. However, existing simulations remain largely inaccessible to students with visual impairments in particular. Recent advances in technology related to sonification use with simulations can make it possible for these students to have a more complete and authentic experience. Sonification is the use of non-speech sounds, such as musical tones, to represent visual information including data. Such sounds can be manipulated temporally and spatially and can also vary by amplitude and frequency to convey information that is more traditionally displayed visually.

Researchers will iteratively develop five middle school physical science simulations to include sonifications aimed at enhancing accessibility for all learners, but particularly for those with visual impairments. Data collection activities will include focus groups and interviews with students and teachers focused on engagement. The end products of this project will include sonified simulations, professional development resources, design guidelines and exemplars, and publications.

The Discovery Research PreK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.